Surfaces, Objects, and Their Borders in Multidimensional Images: Theory and Algorithms

The objectives of this research are (i) to develop a unified geometric theory of objects and their boundaries in n-dimensional discrete spaces, and (ii) to develop algorithms for detecting objects and boundaries in n-dimensional images. The approach to theory development uses an orthogonal tesselation of the n-space into hypercubes, leading to results which are discrete counterparts of some essential results of continuous topology. Thus, objects and boundaries can be represented as graphs, and their detection translates to graph traversal. The algorithm development focuses on devising efficient traversal algorithms, both when the images are locally segmentable and when they may not be. In the former case there is always a unique spanning tree which is easy to traverse. In the latter case, there is no unique solutino and hence the approach is to develop optimal (e.g., using dynamic programming) and suboptimal traversal strategies. The PIs have a long history of contributions to the analysis of medical images and tomography. The development of common theory and algorithms for visualization and analysis of images will be of use in many disciplines using multidimensional image data.